Neutrino Mixing, Baryon Number Non-Conservation, and Neutrino Astrophysics at Super Kamiokande and JPARC-SK

The PI proposes to participate in the SuperK Experiment, which uses a large water-filled detector placed deep inside of a mountain in Japan. The PI's scientific goal is to study baryon number violation, including neutron-anti-neutron oscillations and nucleon decay. As a member of the SuperK collaboration it is also the PI's responsibility to partake in the operation of the detector. Funding as approved will enable him to carry out his commitments.